Workshop: Research Issues in the Transition of Automobiles from Internal Combustion Engines to Fuel Cells and Electric

9317729 Roan This workshop will try to define research issues crucial to the transition to fuel cell or electric vehicles. Of all known ways to power a car, these are the technologies which have the highest efficiency by a large margin in using fossil fuels and electricity, respectively; they also have a potential for orders of magnitude reduction in pollution. Conceptually, the goal is to define a research strategy which would have the effect of minimizing the expected value of the delay between now and the time when such vehicles are available and attractive to the majority of automobile drivers in the United States. Because of breakthroughs in membrane and alkaline fuel cells, in lithium- manganese polymer batteries, and in dissociators which convert natural gas or methanol to hydrogen, this goal is now tangible enough to be a worthwhile subject of serious scientific discussion; however, there is a need for interdisciplinary research, and for greater mobilization of the most advanced scientific researchers to address these long-range issues. This workshop will attempt to generate such discussion and interdisciplinary communication, bringing together expert form industry and government (with existing technology and problem definitions) with experts from universities and small businesses (with advanced specialized research capabilities). Topics will include systems integration and control issues (including advanced learning control using artificial neural networks), membrane and electrochemistry issues, marketing and risk management issues, environmental issues, manufacturing issues, battery research and energy management issues. ***